SDCI: Integrated Simulation and Emulation Platform for Security Experimentation

Trustworthiness of cyberphysical systems (CPS) is an essential concern since such systems are routinely employed in critical settings. Currently many components of CPS are built without sufficiently formalized and analyzed properties and guarantees. Such inadequacies in the system design phase can lead to catastrophic consequences in operations, as they are interconnected to open networks and become increasingly exposed to security attacks. There is a pressing need to evaluate both cyber- and physical systems together and holistically for a rapidly growing number of applications using simulation and emulation in a realistic environment, which brings realistic attacks against the defensive capabilities of CPS.

To address this need, this project proposes to build iSEE - integrated Simulation and Emulation platform for security Experimentation, as a software supporting research infrastructure used for cyber security research and development. iSEE allows for the concurrent modeling, experimentation and evaluation of CPS that range from a fully simulated to a fully implemented system. iSEE has two major components: 1) modeling environment for system specification and experiment configuration and 2) run-time environment that supports experiment execution. iSEE employs the Model-Integrated-Computing (MIC) approach, which explicitly uses models throughout the experiment environments and integrates them at the domain-specific model level. Though iSEE will be primarily used in the CPS domain, the meta-models for system-of-systems modeling and security attack modeling will be developed at a fundamental level, such that they will be generalizable to many domains with similar security assessment needs. iSEE will provide CPS researchers a tool to evaluate CPS with respect to their security properties. It will set the stage for building security as a key property in early CPS design and promote interdisciplinary research and education between computer science and other engineering domains.